The distribution of prime numbers and products of few primes

This project is dedicated to the study of prime chains and applications,
the distribution of integers in progressions which are the
product of two primes, divisors of integers and of shifted primes,
generalized Wieferich primes, and the efficiency of covering congruences.
Prime chains are sequences of primes
so that p|(p'-1) for each pair of consecutive primes p, p' in the sequence, e.g.
2,5,31. We study the distribution of prime chains with a given starting
prime, given ending prime, and chains with a given length. Applications
are given to the height of Pratt trees, and to the distribution of arithmetic
functions. One of the highlights of the work is the development of a
model of prime chains with a given ending prime which is
based on a probabilistic random fragmentation process. It is known
that there are subtle inequities in the distribution of primes in
arithmetic progressions with the same modulus, and we develop a parallel
theory for number which are products of two primes, emphasizing the
similarities and differences compared with the primes case.
Such problems are intimately connected with the distribution of zeros
of Dirichlet L-functions, the multiplicity of zeros being important in
our studies. We will investigate factorization problems, such as
the distribution of primes p so that p-1 has a divisor in a given interval,
and the distribution of factors when integers are written as the
product of k factors, for general k. We will improve known
estimates for the smallest positive integer b such that
p is a generalized Wieferich prime to base b. A set of congruence
classes whose union is all the integers is a covering system of
congruences. The sum S of the reciprocals of the moduli must be at least 1,
and we study how close S can be to 1 if the moduli are distinct and
greater than N.

Questions about properties of positive integers, especially the way in
which integers factor and the distribution of prime numbers, have
fascinated people for thousands of years and have recently found
applications in computer science and information security.
This proposal is concerned with a number of projects about
configurations of prime numbers, how number that are products of few
primes are distributed in arithmetic progressions, the distribution of
divisors of integers, and how efficient covering systems of congruences
can be. The research projects will involve graduate assistants and
post-docs.